Analysis of EUV Emissions in Proton Aurora

Proton auroral extreme ultraviolet emissions by the UC Berkeley Extreme UltraViolet spectrometer on satellite STP-78-1 will be examined. The relationship between extreme ultraviolet auroral emissions and the auroral proton flux will be investigated. Proton and secondary electron energy fluxes will be estimated from the measured emission intensities. Linear transport models of proton and electron energy degradation and radiative transfer of optically thick resonance lines will be used in the analysis of the data. Doppler shifts in Lyman a emission will be used to inter precipitating auroral proton energies. *** //